AMP: California Alliance for Minority Participation in Science, Engineering and Mathematics (CAMP)

9624189 Wilkening Unequivocally endorsed by the Chancellors and the UC Regents, CAMP has become the standard bearer for ensuring diversity among our student populations systemwide. CAMP has come far in the first four years, laying the groundwork for exiting new possibilities that extend the program in various ways to further develop the pipeline to baccalaureate degrees and beyond. NSF funding phase II will allow extending the project by strengthening the quality and quantity of B.S. degree recipients among underrepresented students; expanding curricular reforms; integrating and institutionalizing programmatic components; linking with teacher preparation through K-12 collaboration; continuing to disseminate successful efforts, and extending the use of evaluation to decision-making. Phase II offers a set of experiences that engage the entire educational continuum and also extend to the development of minority teachers in science, mathematics, engineering and technology fields. Through summer and academic year programs that have seen unprecedented success, and through new bold plans that address the transition to graduate and professional school, Phase II promises to advance the faculty-driven momentum that the Alliance has achieved. New collaborations and synergy with related initiatives will fuel our endeavors. Similarly, linkages with business and industry will be strengthened through the Statewide advancement officer who will be dedicated to developing corporate partnerships at each UC campus.